Collaborative Research: Sunspots in the Laboratory

Economists have developed a theory of "sunspot" equilibrium to describe situations
where economic fluctuations are not driven by changes in market fundamentals, but are
instead due to extrinsic, non-fundamental factors. This project involves the design of an
experiment that will explore whether and how such extrinsic factors can result in market
fluctuations, and whether the particular market institution also plays a role.
The experiment consists of two main treatments. In the first, human subjects participate
as buyers or sellers in a computerized "double auction", where goods can be bought and
sold continuously over a fixed trading period at mutually agreed upon prices that are
observable as they occur to all participants. In the second "call market" treatment,
subjects submit private bids and offers, and a centralized mechanism determines the
single, market clearing price, as well as the quantities that each participant can buy or
sell. Thus, the only information subjects receive in this environment is the resulting
market price and the quantity they were able to buy or sell at this price.
In both treatments, subjects face uncertainty in that they are given two sets of values or
costs for the goods they can buy or sell; these two sets correspond to the"state" of the
economy, and are referred to as "high" or "low" in reference to the equilibrium price in
the two states. (the equilibrium quantity is the same in both states). Initially, subjects are
told the state of the economy in advance, so that they become familiar with the two states
for prices. After several rounds, subjects are informed that the true state of the economy,
will henceforth be determined expost, after all trading is completed. Furthermore, the rule
for the determination of the state will depend on the median trade price in the double
auction environment or on the analogous market clearing price in the call market
environment. If this price lies within a proscribed domain of the equilibrium low price,
then the state is declared to be low and if it lies outside this domain, in that of the
equilibrium high price, then the state is declared to be high. Subjects are provided with a
potential coordination device (or sunspot realization) which takes the form of a random
announcement by the experimenter of the forecast for the state of prices in the current
period. Subjects are instructed that this announcement has no binding consequences.
Preliminary findings suggest that subjects coordinate perfectly on the announcement in
the highly centralized call market environment but fail to do the same in the more
decentralized double auction environment. These experimental findings if replicated,
have significant implications for the architecture of real financial markets.